Dynamic Stability of Cable Domes

There are many domes in the United States consisting of two layers of separated cables as the structural system supporting the roof structure. When they were constructed very little was known of the effect of wind and the vibrations induced on the structural system. This project will investigate the conditions for structural instability of the cable system when subjected to wind forces.